Atomic Processes Involving Negative Ions

9509265 Fabrikant Collisional and photo-processes involving the formation and destruction of stable and temporary negative ions are studied using a variety of theoretical techniques. The problems undertaken include negative ion formation in atoms, the interaction of Rydberg atoms with other atoms and polar molecules and the interaction of electrons with molecules absorbed on surfaces. ***